CISE Research Instrumentation

An upgrade to image-processing equipment will be provided for researchers at George Mason University for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of Data Fusion, Texture Segmentation & Shape from Texture, Real-time Inspection, Applications of Wigner Transform, and Motion Understanding.